I/UCRC Planning Grant - UF/CU - Surfactants and Particulate Systems

This action provides funds for the University of Florida and Columbia University to hold a planning meeting to establish the Industry/University Cooperative Research Center for Surfactants and Particulate Systems. The focus of this center is to conduct advanced research in particulate systems and surfactants of significance to industry and in close collaboration with industry. The aim of the center is to develop a knowledge base on the interactions between particulate systems and their relationship with the structure of different surfactants for enhanced performance in the pharmaceutical, chemical, micro-electronic, and other nano-bio applications.